Applications of frames to problems in mathematics and engineering

Casazza
DMS-1008183

The investigator works on several fundamental questions
concerning applications of Hilbert space frames. Much of the
work concerns "fusion frames," which provide a natural framework
for performing hierarchical data processing. Recent advances in
hardware technology have enabled the economic production and
deployment of a large number of low-cost components, which in
combination enable reliable and efficient operation. Across many
disciplines there is a fundamental shift from centralized
information processing to distributed or network-wide information
processing. Data communication is shifting from point-to-point
communication to packet transport over wide area networks where
network management is distributed and the reliability of individual
links is less critical. Radar imaging is moving away from single
platforms to multiple platforms that cooperate to achieve better
performance. Wireless sensor networks are emerging as a new
technology that potentially enables cost-effective and reliable
surveillance. All these applications involve a large number of data
streams, which need to be integrated at a central processor. Fusion
frames are a recent development designed precisely for these
applications. The investigator develops concrete constructions of
fusion frames and the algorithms needed for their implementation.
Working directly with engineers guarantees that advances here have
Immediate implementation. The techniques are also applied to
produce Grassmannian frames for quantum physics -- especially
Quantum information theory, quantum state tomography, and quantum
cryptography. Finally, frame theory has shown that the 1959
Kadison-Singer Problem is equivalent to fundamental unsolved problems
in a dozen areas of research in pure mathematics, applied mathematics,
and engineering. This project develops the needed frames for resolving
what is now one of the most significant open problems in mathematics.

We have now entered a new era where the Defense Department,
Homeland Security, and industry must process amounts of data that
overwhelm even current computer capacities. Especially for
defense, it is critical to be able to process these data in real
time, which is becoming more and more difficult. The problems
caused by this "information overload" are escalating rapidly
every year and need to be addressed immediately and quickly.
Therefore, it is of vital national interest to automate as much
of the information fusion process as possible. But at this time,
in the area of information fusion the fundamental mathematics
necessary for such an automated system is far behind the current
needs. The investigator and his students develop the mathematics
necessary for tackling these critical needs. This includes
methods for storing and processing information in parallel --
i.e. dividing it into multiple subsystems for simpler processing
and then "fusing" the results to get the desired outcomes. It
also includes developing distributed sensing networks that can
keep an area under surveillance while taking into account severe
physical limitations of the systems such as low communication
bandwidth, limited signal processing power, limited battery life,
or the topography of the surveillance area. Such an automated
system must be able to combine a large number of sources of quite
disparate information while leaving almost no room for error.
The investigator and his students address these needs as well as
try to anticipate the next level of difficulties that will arise.